REU: Undergraduate Research Participation in Biochemistry and Cell Biology

This is a Research Experiences for Undergraduates project. It provides research experiences for eight students at the University of Kansas. Students will participate in projects involving biochemistry, molecular and cellular biology.